CAREER: Investigating Research Issues in Ubiquitous Computing: The Capture, Integration, and Access Problem

The defining characteristic of ubiquitous computing is the attempt to break away from the traditional desktop interaction paradigm and move computational power into the environment that surrounds the user. This award focuses on automating the capture of individual and group experiences, in order to facilitate access to a richly integrated record of events: the automated capture, integration and access problem for ubiquitous computing. The natural candidates for this capture are collaborative activities such as meetings, education, and design. This award will initiate a large-scale ubiquitous computing effort--- Classroom 2000---to access and support the rich interaction of classroom experience, and will grow to support and assist students through their educational careers and beyond. Open issues include effects of granularity of capture, support for revision during access, and how interactions among collaborators affects capture and integration. Of special interest is determining whether and how ubiquitous computing technology supports note-taking practices that contribute to near-term and long-term educational goals.